Collaborative Research: Statistical Analysis on Manifolds: A Nonparametric Approach for Shapes and Images

The shape or image of an object may be recorded digitally by a finite
number k of landmarks or positions on the object, called a k-ad. The space
of orbits under rotation and translation of k-ads is the size-and-shape
space. If one includes scaling with rotation and translation, then the
space of orbits under the resulting group of transformations on the k-ads
is the shape space. These are examples of Riemannian manifolds, some with
singularities. One approach proposed here for inference about a
distribution on a general differentiable or Riemannian manifold M, based
on a random sample from it, is to carry out a multivariate analysis of the
image under the so-called Log map on one or more tangent spaces to M.
Apart from this intrinsic approach, less computation intensive extrinsic
procedures based on embeddings in Euclidean spaces are investigated. The
project explores consistency and asymptotic distribution theory on
manifolds for robust tests and confidence regions from both points of
view--intrinsic and extrinsic.

One motivation for this study comes from the need to identify
deformations or shape changes for purposes of medical diagnosis and
biomorphology. Immediate applications also arise to machine vision and
pattern recognition. There are significant impacts of this research on
these and many other fields. Another important goal of this project is to
train students in the newly developed methodologies, leading to the
dissemination of knowledge gained through this research and the creation
of a body of technicians and experts to apply it.